2003-2004 Special Year in Geometric and Spectral Analysis; Montreal, Canada

ABSTRACT

The proposal is to support US students and postgraduates to participation in the 2003-2004 Special Year in Geometric and Spectral Analysis at the Centre de Recherches Mathematiques of the University of Montreal, Canada. The program presents a unique training opportunity for students and postgraduates interested in aspects of analysis motivated by mathematical physics, singularity theory, and number theory. There are very few, if any, other possibilities for students and postgraduates to get such a systematic exposure to current research directions in such a wide and interrelated range of mathematical analysis. Mathematical analysis is an especially powerful tool for science and technology. The research themes of the 2003-2004 Special Year arise from the areas of mathematics and physics with the greatest overlap with science and technology.